Preparing Electrical Engineering Students for the Evaluationof Health Standards from Non-Ionizing Electromagnetic Fields

This project enhances the effectiveness of the Electrical and Magnetic Fields course: Calculations, Measurements, and Hazard Assessment, offered at New York Institute of Technology. This is a popular course for seniors majoring in electrical engineering at the Metropolitan Campus of this institution. This course provides students the opportunity to measure and assess the effects of low level non-ionizing fields in order to evaluate standards for safe levels of exposure. The students work independently, investigating current standards, identifying health issues, and, most importantly, determining exposure assessments. With the instruments acquired under this grant, students gain a scientific appraisal of actual conditions and do significant research that contributes to improving this critical database. The ultimate goal is to prepare engineers to serve as the source of and interpreters of scientific information that will guide policy-makers and the general public to make wise decisions on this environmental issue. This award is being matched by an equal amount from the principal investigator's institution.